Development of Undergraduate Graphics Laboratory with RasterEnvironment at CUNY Queens College.

A rasterbased graphics workstation environment is being established to provide laboratory support for teaching computer graphics effectively and for developing a new curriculum for the subject area. The environment consists of one 24-bit workstation, fourteen 8-bit workstations, and two color printers. It enables teaching a full spectrum of material ranging from illumination models to graphical user interfaces, with selected topics covered in an introductory graphics course at the senior level and more advanced topics in honors problems. It also gives the opportunity to experiment with restructuring the traditional vector-oriented curriculum by incorporating several state-of-the-art theories and techniques, thus providing the students with a coherent and well-balanced exposure to both the fundamental principles and the engineering aspects of computer graphics.